Scholars Award in Methodological Training: Spatial Autocorrelation Analysis

This award will support the methodological training of a cultural anthropologist in spatial autocorrelation methods. This training will be applied to an analysis of intersocietal variation in adult male stature. Various theories explaining male stature as the result of infant stress will be tested with cross-cultural data. This methodological training activity is important because it will increase the quantitative sophistication of cultural anthropology, a field that has been lacking quantitative skills. The research to be done will also help understand cross-national variation in stature, which has practical implications for policies which may affect growth.